Postdoctoral Research Associateship in Computational Science and Engineering

This award is for a postdoctoral associate in Experimental Science. The associate, Elana Granston, will be working on data access techniques for optimization and parallelization.